Conference: Annual Meetings of the West Coast Bacterial Physiologists, to be held in Pacific Grove, California, December, 2002

The objective of the annual meetings of the West Coast Bacterial Physiologists (WCBP) is to
foster communication among established investigators, postdoctoral fellows and graduate
students working in the broad area of microbial physiology. Started in the 1940.s by C. B. van
Niel for his associates on the West Coast, participants now come from Canada, the Midwest and
the East Coast of the USA. This is one of the few conferences in North America that have
retained a focus on microbial physiology, with a primary, but not exclusive, emphasis on the
physiology of prokaryotic microorganisms. The conference especially provides a forum for
graduate students and postdoctoral fellows to present and discuss the results of their research
projects utilizing experimental systems ranging from model organisms to those of specific
relevance to pathogenic and environmental microbiology. The conference has been held
continuously since 1963 over a weekend in the middle of December at the Asilomar Conference
Center in Pacific Grove, California.

The annual meeting is announced in August and September by direct mailings and by posting on
the WCBP web site (http://wcbacterialphysiologists.ucdavis.edu). The meeting is organized with
four formal sessions (Friday evening, Saturday morning and evening, and Sunday morning) and
four unstructured informal sessions (Friday afternoon and late evening, and Saturday afternoon
and late evening). Each of the four formal sessions is initiated with a 45 min overview lecture.
The overview lectures are endowed by the Genentech Corporation and identified as the John
Ingraham Lectures in Microbial Physiology. The John Ingraham Lecturers may be principle
investigators, postdoctoral fellows or graduate students. They are selected by the conference co-
directors on the basis of scientific merit and current high profile research topic of relevance to
microbial physiologists. The overview lectures are followed by offered papers of 15 or 20 min
duration. Typically, 7-9 and 5-7 offered papers are scheduled for the morning and evening
sessions, respectively, depending on the number of abstracts submitted. No graduate student
submitting an abstract has been denied a chance to present her/his data and conclusions. A
registration fee covers lodging, food, meeting room expenses and support for the informal
sessions. A differential between the registration fees for graduate students and all other
participants has traditionally been preserved. NSF funding will be applied to maintain at least a
20% lower registration fee for graduate students and go toward support of poster sessions, if the
participants desire such sessions.